Pulsar Research at the Giant Metre-Wave Radio Telescope, Pune, India, Indo-U.S. Collaborative Research

9321974 Rankin Description: This project supports Drs. Joanna Rankin, Department of Physics, the University of Vermont, Timothy H. Hankins of the New Mexico Institute of Mining and Technology, and Joel M. Weisberg of Carleton College, for work at the Giant Metre-Wave Radio Telescope (GMRT) in Pune, India. They will collaborate with Drs. G. Swarup, director of the GMRT and V. Radhakrishnan, director of the Raman Research Institute (RRI) in Bangalore, India. The GMRT is a project under the auspices of the National Centre for Radio Astrophysics (NCRA) in Pune. The research will deal with pulsars, pulsar emission, beaming and evolution, pulsar microstructure, and pulsar timing and polarimetry. It will include broad observational programs using the GMRT, involving large and currently active teams from the NCRA and the RRI Scope: This project allows the three U.S. scientists to collaborate with two of India's most distinguished scientists in research on pulsars, a topic of strong current interest. They will use unique facilities including the GMRT which, when completed later in 1994, will be the largest collection area, fully steerable telescope in the world, placed in a location away from many man-made sources of interference. They will also use data currently being generated using the Ooty Radio Telescope (ORT) in India. The project presents a strong case of beneficial Indo-U.S. collaboration in a scientific area which is strong in both countries. The project meets the criteria of the Division of International Programs. ***